Acquisition of a High-Field NMR Spectrometer

The rapid and continuing growth in the significance of the use of nuclear magnetic resonance techniques in solving structural problems requires that a modern curriculum place considerable emphasis on both theory and practice in the area. Through the acquisition of a high-field NMR spectrometer, the institution has improved the course content in five laboratory courses offered in the Chemistry Department: Organic Chemistry I and II, Inorganic Chemistry, Instrumental Analysis, and Senior REsearch. The acquisition of the instrumentation has also resulted in improvements in the associated lecture portions of these courses. The Gemini 200-RT system has been utilized to permit the introduction of new experiments into each of the laboratories and to augment techniques available to undergraduate research participants. The project has been of major significance because it enabled the Chemistry Department to bring it curricular content to standards recognized by national consensus.